Composition and Origin of Fluids in Convergent Margins

The nature and origin of fluids and digenetic solids in accretionary complexes can be inferred from geochemical, isotopic and mineralogical studies of convergent margins. The Barbados Ridge, Peru margin, Nankai Trough and New Hebrides island arc to be studied in this project are different in structure, thermal regime, sedimentology and geochemistry. The objective of the project is to constrain the fluid-rock interactions in these four contrasting settings and to quantify the flow of water and solutes through the accretionary prism. Fluids being expelled from such settings play a key role in controlling the deformational, thermal, and geochemical evolution of these margins. A synthesis of the fluid systems will be important in planning future ODP drilling in accretionary wedges.